Instrumentation and Laboratory Improvement in the Chemistry Department

The chemistry laboratory offerings are being upgraded with the acquisition of Spectronic 20 model D spectrophotometers and Westronics recorders, a Shimadzu UV spectrophotometer, electronic balances and a Perkin Elmer FT-IR 1600 spectrophotometer. Instrumental methods are being introduced into freshman courses followed by expanded usage in the sophomore courses. Students are preparing inorganic and organic compounds and then using the instruments to characterize them, as well as study their spectroscopic properties. By using both Spectronic 20's and a recording UV spectrophotometer, students are being given the opportunity to see the impact that instrumentation can make on a determination. The grantee is matching the award from non-Federal sources.